Supercomputer Teacher Enhancement Project (STEP)

The Supercomputing Teacher Enhancement Project (STEP) trains forty-six teachers in the San Diego area over a period of 42 months. Six of the teachers are lead teachers who receive extensive training at the Lawrence Livermore Labs prior to the start of the project and at university expense. They serve as teaching assistants working with the forty participating teachers over the following three years. The participating teachers learn the basics of computational science, programming, and high performance computing then are expected to share and work with approximately ten other teachers in their schools. They learn to use computing at many levels, to incorporate computational science into their curriculum, and to develop activities or projects for students. The teacher training consists of three week summer workshops, academic year meetings, and visits to local facilities. Through the combined efforts of the universities, the local school districts, the super computing center, and the community, the project will directly impact students in urban and similar schools in the San Diego area with a high number of minority students. The project targets underrepresented teacher and teachers of students who are traditionally underrepresented.